Models of Eddy and Wave Forcing of Deep Western Boundary Currents and Abyssal Recirculations

The role that eddies and Rossby waves generated by instabilities of the wind-driven circulation have in forcing the deep western boundary currents and the abyssal circulation will be studied using a combination of analytical and numerical models with increasing complexity. Of particular interest are the effects of the continental rise on eddy-driven circulation beneath the Gulf Stream and the weakly non-linear wave-mean flow interactions between a bottom trapped current and topographic Rossby waves.